International Travel Grant to Visit Tohoku University in Sendai, Japan (Spring of 1991)

This action is to provide R/T airfare to Japan for Professor Yeh. The purpose of this visit is 1) to establish closer research interactions between the Disaster Control Research Center at Tohoku University (and especially the Tsunami Engineering Department within this Center) and tsunami researchers in the United States, 2) acquire hard-to- obtain field data and historical data on tsunamis (seismic sea waves) which could identify research needs to address the potential tsunami threat to coastal areas in the U.S., 3) to facilitate the interchange of information on tsunamis between Professor Yeh and researchers in Japan, 4) to discuss with Professor Nobuo Shuto (a world renowned tsunami engineering researcher) possible research cooperation, and 6) to visit coastal sites subjected to past tsunami runup and damage.